Development of Membrane Materials Using Ion Beam Irradiation of Aromatic Polymers

Abstract

Proposal number: CTS-9975452
Proposal type: Investigator Initiated
Principal investigator: Maria R. Coleman
Affiliation: University of Toledo

Development of Membrane Materials Using Ion Beam Irradiation of Aromatic Polyimides

Ion-beam irradiation is being investigated as a method to modify systematically the gas-transport properties of polymeric membranes in order to develop membrane systems for applications in harsh environments. Numerous studies indicate that there is a significant evolution in the chemical structure and microstructure as well as in the properties of polymers following exposure to irradiating ions at increasing ion fluences. Proof-of-concept studies by this research group indicate that H+ irradiation of polyimide membranes results in combined increases in both permeability and permselectivity relative to the virgin membranes. A systematic investigation of the impact of ion-beam irradiation on the microstructure, chemical structure, and gas transport properties of a series of polyimides will be performed. The results of this study will clarify the mechanism of microstructural evolution in the polyimides and the relationship between this microstructure and the gas-transport properties of the irradiated polymers.